MRI: Track 2 Acquisition of X-ray Microscopy System for in situ Measurements of Submicrometer-scale Features Across Diverse Materials

This Major Research Instrumentation (MRI) award will allow Montana State University (MSU) to acquire a high-resolution, three dimensional (3D) X-ray microscope to address pressing challenges in water resources, infrastructure, biomaterials, agriculture, energy, and human health. This instrument will serve as a national resource, supporting researchers throughout Montana and the broader United States who study materials that directly affect public welfare, from declining mountain snowpack that threatens water supplies and increases avalanche risk, to biomineralized materials that strengthen infrastructure in remote communities. Beyond research, the instrument will expand educational opportunities and community engagement. Graduate and undergraduate students will gain hands-on experience with advanced imaging technologies, while new modules on 3D visualization and data analysis will be integrated into engineering coursework. Outreach will bring these capabilities to K-12 classrooms. The instrument will help expand collaborations with other universities and K-12 teachers across Montana to bring 3D visualizations of traditional tanning practices into their classrooms and will help MSU Extension communicate soil structure and water conservation insights to regional farmers.

The ZEISS Xradia Versa 730 X-ray Microscope (XRM) instrument is uniquely configured to meet pressing research and outreach priorities. The instrument's most distinctive feature is a custom large cold stage designed to accommodate snow and ice cores, enabling diffraction contrast tomography (DCT) of large frozen polycrystalline samples for grain-scale microstructural mapping. DCT will be paired with an in-situ loading or thermal cycling stage to support micromechanical studies across a range of material systems. An advanced objective and detector configuration allows high-resolution scanning of dense samples, extending the instrument’s utility to biomineralization, agriculture-derived materials, and energy-relevant systems. Collectively, these capabilities distinguish the XRM as a uniquely versatile instrument for analyzing materials that are otherwise difficult to study, and for advancing research in environmental science, agriculture, energy systems, and biomaterials.